RUI: Acquisition of a Data Analysis Computer System

This equipment grant will provide funds to upgrade the data analysis computer system at Hope College. The system will be used for nuclear, intermediate energy, and atomic, molecular and plasma physics research. An important aspect of these research programs is the significant participation, and consequent training, of Hope College undergraduate students.